CAREER: Research in Complexity Theory with Applications

Complexity Theory is the mathematical study of the limits of efficient
computation. This study is framed in terms of the power of
nondeterminism, the power of randomness, and the relationships between a
rich variety of complexity classes that capture computational aspects of
natural problems. This proposal addresses two fundamental questions in
Complexity Theory, and seeks to employ the tools developed in these
investigations to attack significant open problems in Algorithms.

The first question concerns the power of randomness, which is used
pervasively in modern algorithm design, cryptography, large-scale
simulation in the natural sciences, and other settings. For certain
problems, efficient randomized solutions are known but not efficient
deterministic ones, so randomness may appear to be essential. However, a
striking sequence of results over the last decade gives strong formal
evidence to the contrary, by developing a generic procedure that
"compiles" every efficient randomized algorithm into an efficient
deterministic one ("derandomizes"
the algorithm). A number of powerful tools and methods have emerged from
this effort, including optimal pseudo-random generators, so-called
"randomness extractors", and techniques for the "amplification" of
computational hardness. The objective of this research is to build upon
and improve these tools, and to use them to extend the derandomization
paradigm to broad classes of randomized procedures beyond
"polynomial-time decision
procedures," which have been a primary focus until now. Specific goals
include the derandomization of space-bounded computation,
derandomization of computation in which nondeterminism and randomness
interact, and derandomization of procedures relevant to large-scale
simulations, such as approximate counting.

The second question concerns the power of nondeterminism in
space-bounded computation. Savitch's famous result shows that the power
of space-bounded computation is only slightly enhanced by supplementing
it with nondeterminism. This stands in sharp contrast to the situation
with respect to polynomial-time computation, where the addition of
nondeterminism results in the (presumably) exponentially more powerful
class NP. It is a longstanding open problem to improve Savitch's result
and ultimately show that nondeterminism adds no power to space-bounded
computation. The PI will initiate a sustained effort to resolve this
fundamental problem, initially focusing on a novel approach that exposes
the problem to a broad array of powerful tools from Group Theory and
Representation Theory.

Wherever possible, the techniques developed in pursuing these objectives
in Complexity Theory will be applied to significant problems in
Algorithms. For example, one goal is to employ ideas that naturally
arise in derandomization to attack a number of open problems in the
generation of random structures. The suggested techniques are quite
different from the currently predominant
method of "Markov chain Monte Carlo" simulations. Another goal is to
work toward an improved algorithm for fast matrix multiplication, by
exploiting a special case of the group-theoretic approach to improving
Savitch's result. Fast matrix multiplication lies at the heart of many
fundamental problems in algorithmic linear algebra; an improved
algorithm would have a major impact in this area and beyond.

The educational plan encompasses new course development related to this
research, integration of accessible theoretical and mathematical
components early in the undergraduate curriculum, and a focused effort
to enhance interactions between Mathematics and Computer Science through
seminar series and joint course offerings.

The proposed activities will involve both undergraduate and graduate
students as integral participants in the research and teaching
components as appropriate. The PI will seek to strengthen and expand
ongoing collaborations with researchers from several disciplines at
academic institutions (including liberal arts colleges) and industry
research labs.

The activities' intellectual merit derives from its dual goals of
advancing an understanding of the nature of two fundamental
computational resources (and consequently, broad classes of problems
that utilize these resources), and resolving core algorithmic problems
that transcend application area.

Broader impacts are realized through integrated activities to advance
discovery while promoting innovative teaching and training,
dissemination of educational materials, and activities to enhance
interdisciplinary interaction, as well as encourage undergraduate
involvement in research.